Long-Term Stability of Natural Slopes

The long-term stability of slopes can change due to a progressive reduction in the shear strength parameters. Seasonal cycles of wetting and drying and fluctuations in the water table may contribute to the gradual reduction in the shear strength of natural cohesive soils thus, increasing the probability of landslides. The study will examine the effects of these environmental loadings and the reduction in shear strength of natural claystones, cohesive colluvium and cohesive alluvium, and on the long-term stability of slopes in or affected by these materials. Ring shear tests will be used to measure the accumulation of permanent shear deformation and the subsequent degradation in shear strength. Laboratory data will be applied to documented landslide case histories to validate the research conclusions. The results will be the basis for the development of mitigation measures.